Focusing of Proteins in a Multi-Chamber Electro- Ultrafiltration (MEUF) Column

9417239 Ivory This project is on research to study separation of polyelectrolytes by coupling electrophoresis and ultrafiltration. The basic idea is that competition between electrophoretic transport, caused by an electric field, and convective transport across a porous barrier (a membrane), caused by pressure flow and electroosmosis of solvent, can be used to separate charged macromolecules such as proteins on the basis of their electrophoric mobility. Preliminary work has been done with one solute and one porous barrier. The proposed research would investigate and develop a system with multibarriers and multicomponent solutions, with the objective of fractionating a mixture of proteins into different compartments bounded by two porous barriers. In addition to this apparatus, the research will develop a model of the electrokinetic phenomena inside and outside of the membrane pores. ***